Design Workshop for Computer Science Mathematics Curriculum,Fairfax, Virginia, November 10-11, 1986

This workshop has two goals. First, the workshop will bring together experts in the field of computer science for the purpose of creating and rationalizing the computer science curricula from the freshman year through the PhD. Second, the workshop will serve as a tested for a design approach called the Generic Design Methodology that has recently been developed. The workshop will test whether this methodology can enable a group to work together efficiently to produce good, well-documented results in a short time.